RUI: 400 MHz NMR for Research and Research Training in Chemical Synthesis

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Middle Tennessee State University will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out research on a) synthesis of biologically-active organic molecules; b) synthesis of organic and inorganic materials and their precursors; c) kinetic analyses; and d) binding studies involving biomolecules.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in synthetic organic chemistry and biochemistry.